RUI: The Darboux-Halphen Equations and their Generalizations

This proposal is concerned with the study of a class of
nonlinear differential equations arising in such diverse
areas as fluid dynamics, cosmology, topological quantum
field theory as well as theory of automorphic functions.
These equations admit a large family of solutions in terms
of modular forms and exhibit novel singularites in the
form of movable natural boundaries in the complex domain.
The main objective of this project is to characterize the
complex dynamics of these nonlinear systems by analyzing
their general solutions, symmetries and singularity structures
in the complex plane. Various algebraic and geometric methods
akin to the theory of completely integrable systems will be
employed to carry out the proposed studies.

Nonlinear differential equations are well known to have
important applications in the modeling of complex physical
phenomena arising in many areas of science and technology.
This proposal is aimed to investigate the general solutions
to a class of nonlinear differential equations, thereby shedding
more light on the properties of the underlying physical systems
described by these equations. The project will also explore
the connection between these nonlinear equations and the theory
of automorphic functions which traditionally arises in areas of
pure mathematics such as number theory. The proposed research
activities will be carried out in a primarily undergraduate
institution. It is strongly anticipated that the proposed research
will lead to undergraduate projects in several areas including
nonlinear waves, dynamical systems, special functions and conformal
mapping, all of which have wide ranging physical applications.